Dynamical Systems Approach to Computer Simulation Accuracy and Data Analysis

Sauer
0208092
The investigator studies computational aspects of nonlinear
dynamical systems, emphasizing the role of chaotic dynamics in
the interpretation of long-time simulation outcomes and data from
complicated dynamical processes. The work on simulation is an
ongoing study of subtle biases occurring in deterministic
modeling that have macroscopic effects on outcomes. It is an
open question whether it is possible in principle for long-term
computer simulations of typical nonhyperbolic chaotic systems to
approximately match true system behavior. The second major area
is ongoing work on the interpretation of physical and biological
experiments that generate aperiodic data. There is a long history
of applying random modeling to time series and spike timing data
collected from laaboratory and natural processes. The
investigator syudies ways to use dynamical systems techniques,
including embedding theory and spike train reconstruction, to
extend the power of deterministic modeling for experimental data.
Computer simulation is a critical ingredient of modern
science. It is important to know whether solutions of a
mathematical model used for simulation can be expected to be
accurate qualitative and quantitative representations of the
natural phenomena being modeled, in the face of small modeling
errors, and whether computer solution of the model can represent
solutions of the model, in the face of small floating point
errors. This reseach builds a foundation for answering questions
like this for physically relevant models. In particular the
investigator is involved in isolating and quantifying the
limitations of deterministic representations, especially for the
purpose of long-term modeling. The second major focus of the
project is the interpretation of data collected from experimental
systems and nature when no first-principles mathematical or
computer model is available. If time traces of physically
relevant quantities can be measured from the process, techniques
exist to attempt to reconstruct the dynamical behavior of the
process, with potential to predict or control the process.
Complex deterministic time series are being identified in
physical, chemical, engineering and biological/medical settings.
The investigator has made previous progress on expanding these
conceptual foundations and developing related computational
implementations, and is working to increase their power for the
study of complex systems in scientific and engineering-related
contexts.